Proposal Processing and Data Entry Support for the Digital Libraries Initiative-Phase 2 Program

This is an award to IIS-9911741, Allied Technology Group, for "Proposal Processing and Data Entry Support for the Digital Libraries Initiatve- Phase 2".